NMR Spectroscopy for Chemistry, Biochemistry, and Biology Students

Nuclear magnetic resonance spectroscopy (nmr) is an essential technique for the practice of modern chemistry and biology. The institution had spectrometers which were difficult to use and could not do many of the routine modern experiments, and were therefore an impediment to the study and use of nmr spectroscopy in the curriculum. Through this project the institution was able to obtain a 300 MHz spectrometer. The new spectrometer permits undergraduates to routinely obtain nmr spectra in the organic, inorganic, physical chemistry, and cellular physiology laboratories, and student projects and senior thesis research. The new nmr spectrometer provides such an increase in capabilities that it has had a profound effect on the nature of the experiments that students perform. It addition, it greatly increased the rate at which they are accomplished. The institution contributed to this project in an amount nearly double the NSF funds.